Survey of Human Resource in Ecology

Recent reports have identified the potential lack of qualified scientists and technicians as a major concern in ensuring that basic ecological research can be undertaken. This research is of primary importance in addressing current environmental issues. Neither the scientific nor the policy-making communities know the demographics of trained ecologists in the United States. There is no document identifying the number of ecologists employed and their areas of specialization. Educators, government agencies and research institutions need to know what training is required for the next generation of scientists. The Ecological Society of America, Public Affairs Office, will develop, publish, and distribute a survey assessing the human resources in ecology. The objectives of the study are to determine the pattern of graduate ecology degrees earned over the past 30 years; determine ethnicity and gender composition of ecologists (This information would be compared to the demographic composition of the work force as a whole); catalog the nation's environmental science capabilities according to problem area (eg. how many scientists are trained to study the ecological complexity of global change); and analyze current employment patterns of ecologists. The resulting human resource survey would provide direction to ecologists, other scientists, federal and state agencies, educators, and research institution in setting goals and designing programs over the next decade.